Calculation of Differential Electron Impact Ionization CrossSections (Physics)

It is proposed to develop methods for ab initio calculations of electron impact ionization at low and intermediate energies. Such a theory will be subject to stringent comparisons with available experimental results. The effort here involves a generalization of the R-matrix approach, matching an inside solution to the scattering problem to an asymptotic solution. The latter is basically known, though certain extensions will be necessary. The other principal task is to match at the R-matrix boundary; the approach will be via a variational principle with a Dirichlet boundary condition.